EFFICIENT IMAGE CODING OF PYRAMIDAL STRUCTURES FOR THE HUMAN VISUAL SYSTEM

This research project investigates multi-resolution pyramid decompositions for images, generated by wavelet-type kernels, which are compatible with human visual system processing and which provide efficient image coding. The generating kernels and their bases are analyzed for their truncation, entropy reduction, and rate-distortion theoretic properties relevant to the best visual result for a given bit rate. Both still and moving (video) images are treated.